SM: Graph Models in Nanotechnology, Photonics, Chemistry, and Other Areas

Kuchment
DMS-0648786

The series of a tutorial and three workshops is a part of a
semester-long program at the Isaac Newton Institute for
Mathematical Sciences in Cambridge, UK. The program assembles a
large international group of mathematicians and physicists
interested in graph models arising in widely disparate areas of
high practical and theoretical importance. Analysis on graphs
has been developing very quickly in the last decades, due to
needs of number theory, algebra, probability theory, and spectral
geometry. This area has experienced recently a surge of new
important applications, new methods, and new models. New
objects, such as quantum graphs (quantum networks) or
differential operators on fractals, have emerged, which provide
simplified models of complex systems and help with studying
difficult issues such as, for instance, Anderson localization and
quantum chaos. All these developments have sparked the interest
of experts in other areas of sciences and mathematics in analysis
on graphs and in the diversity of methods employed. The program
starts with a tutorial workshop where young researchers and
students are introduced to the basics of analysis on graphs,
quantum graphs, and fractals. Then two workshops follow devoted
to spectral analysis and quantum chaos on quantum graphs and
graph models for nanotechnology, chemistry, optics,
microelectronics, and other areas. The third workshop addresses
algebraic aspects of analysis on graphs and fractals. Besides
workshop participation, longer term visits of both established
and young researchers are arranged.

Analysis on graphs has experienced sharp growth in recent
years, due to many new applications that sweep throughout a wide
scientific landscape: computer graphics, information technology,
Internet studies, nanotechnology, microelectronics,
superconductivity, optics, chemistry, and material science.
Researchers in these areas meet problems that are similar to
those faced by mathematicians in areas like number theory,
combinatorics, differential equations, and spectral theory. The
program facilitates the urgently needed communication and
cooperation among researchers in different areas of mathematics
and sciences. It thus accelerates progress in this new area that
has extensive applications in crucial scientific and technology
fields, such as nanotechnology, photonics, and material science.
It alsos help to increase participation and visibility of US
researchers in these fields. Significant training for junior
researchers and graduate students is provided, including
specially designed tutorials, seminars, and open problems
sessions. A proceedings volume is planned to be published. The
grant supports US-based participants in the program, mostly US
students, postdocs, junior faculty, women, and other
underrepresented groups.